Theory of Tethered Polymer-Solution Interfaces and Quantum Impurities

9225123 Beck Dr. Thomas L. Beck is supported by a grant from the Theoretical and Computational Chemistry Program to perform research in the following two areas: 1) computer simulations and statistical mechanical theory of a tethered alkane-polar solution which is a model for reversed phase liquid chromatography; and 2) calculation of chemical potentials in quantum systems with applications to solubilities. Beck will apply a combination of computer simulation methodologies such as Stationary Phase Monte Carlo and Coherent State Path Integration as well as statistical mechanical theory to these theoretical problems. %%% Polymers adsorbed or chemically bonded to surfaces form the basis for several technologically and biologically important processes, e.g., molecular electronics, polymer coatings, and model membranes. Reverse Phase Liquid Chromatography (RPLC) is an important chemical separation technique which depends on such an interface. Dr. Beck's research will help to understand the detailed mechanism for this separation technique at the molecular level. In a second set of studies, Beck will examine the fundamental theory behind the unusual quantum behavior of of light elements at low temperatures. This has important implications with regard to the solubility of various atoms and molecules in liquid helium, and the storage of hydrogen isotopes in metals. ***